Conference: Cascade Topology Seminar

The Cascade Topology Seminar (CTS) will meet for its 69th edition on May 30-31, 2026, at Portland State University, Portland, Oregon. The CTS is a semi-annual meeting of researchers and students with interests in topology in the greater Cascades region. Apart from bringing together the regional topology community in a welcoming and intimate setting, the CTS also connects them with selected invited speakers from outside the region. The scientific focus of CTS is being expanded from low dimensional and algebraic topology now to add the emerging subfield of applied topology. This will engender new developments in all three areas. The direct impact of CTS is in supporting the regional community to learn the latest developments in topology and to interact with leading researchers from within and outside the region. The broader scientific community as well as the general public will learn about CTS through its web page as well as the short professional interaction videos that will be shared widely.

The CTS will provide junior researchers (graduate students and postdoctoral scholars in particular) with opportunities to share recent work and seek feedback from experts in a welcoming setting. With the expansion of its scope to include applied topology, such interactions will lead to the discovery of new results that are, or are combinations, of theoretical, computational, or applied flavors. The widespread sharing and access of the CTS web page will help popularize the focus areas. Furthermore, the early career participants will create short (2–3 minutes long) videos of informal interactions with the senior researchers at CTS discussing their work or other topics of professional interest. Apart from popularizing CTS, these videos will have a significant impact on developing a strong and supportive research community.

CTS web page: https://sites.google.com/view/cascadetopologyseminar/.